Polypeptide Signaling in Plants

Research is proposed to investigate the extent and roles of polypeptide
signaling in plants. Animals and yeast utilize polypeptide signals for
regulating a host of physiological processes, including stress,
reproduction, development and defense, and many others. Until 1991, when
this laboratory discovered the first polypeptide signal in plants, the
accepted dogma was that plants did not utilize polypeptide signals, but used
small chemical hormones such as auxin, cytokinins, gibberillins, ethylene
and abscisic acid as regulators of physiological processes. Since the first
isolation of a polypeptide signal in 1991, four new polypeptide signals have
been identified in other laboratories, and five more have been identified
and purified in our laboratory. The signaling polypeptides in plants
reported to date are involved in defense, development, and reproduction.
Thus, we expect many more to be identified in the near future. We have
developed a novel, rapid assay to identify polypeptide signals in plants
using suspension-cultured cells, which respond to receptor-mediated
polypeptide signals by causing the pH of the cell culture medium to
increase. Using the assay to monitor the signaling polypeptides during
purification, we have identified five receptor-mediated polypeptide signals
from tobacco, tomato and alfalfa and are utilizing the assay to investigate
the presence of polypeptides throughout the plant kingdom. We have
extensively studied the first discovered polypeptide defense signal that is
released upon herbivore and pathogen attacks. It is an 18 amino acid
polypeptide isolated from tomato, that is derived from a 200 amino acid
precursor. We have published extensively on its signaling pathway in plants
and have identified and isolated its receptor on tomato cell membranes. We
are currently isolating the receptor gene for studies of the structure and
function of the receptor in tomato cells. We are also seeking the genes for
the new polypeptides we have isolated to determine their precursors, the
mode of release and action, and their localization in plants. We will
continue to identify and isolate the receptors of these polypeptides and
begin to learn the broad fundamental principles that underlie polypeptide
signaling in plants. Our studies of signaling polypeptides and their
receptors in plants will provide an entirely new understanding of plant
signaling for defense and development, with important relevance to ecology
and agriculture.